A Two-Year College Transforms Physiology Laboratory Exercises with Interactive Computer-Enhanced Instruction

Katherine A. Hoffman DUE 9550878 Tarrant CJC Northeast FY1995 $ 27,348 Hurst, TX 760543219 ILI - Instrumentation Project: Life Sciences Title: Physiology Laboratory Exercises with Interactive Computer- Enhanced Instruction Computer-enhanced instruction in the physiology laboratory exercises is being employed to determine: (1) if computer-enhanced instruction improves mastery of the material covered, (2) what student attitudes are towards the use of computer applications versus conventional laboratories, and (3) if student dropout rates are affected by this new approach. The student audience includes non-science and allied health majors, with women comprising 78% of this population. A three-pronged approach to laboratory instruction is being employed: (1) Standard hands-on laboratories of a conventional type, (2) Mixtures of hands-on laboratories and interactive multimedia software, and (3) Computer-enhanced laboratories. Intelitool and A.D.A.M software is being employed with IBM compatible computers. Results of the project will be reported at the Texas Junior College Teacher Association Convention and to the Texas Higher Education Coordinating Board in Austin, Texas. Information will also be disseminated by the publication of a scholarly paper. Evaluation will primarily be based on data collected on-line from statistically proven questionnaires administered over the length of the project.